Advancing STEM Student Success Through AI Literacy in a Gateway Chemistry Course at a Two-Year College

This project aims to serve the national interest by increasing student persistence in gateway
science courses at two-year colleges, preparing more students for careers in technical and
scientific fields. General Chemistry I carries national drop-fail-withdraw rates near 30 percent,
climbing to 42 percent for online students, making it one of the most consistent degree-
completion barriers in undergraduate science. Two-year college students bring considerable
assets to these courses: practical work experience, clear career goals, and familiarity with solving
concrete problems under time and resource constraints. The importance of this project is its plan
to build on those strengths by embedding structured Artificial Intelligence literacy into chemistry
coursework, training students to use AI for self-checking and reflection rather than answer
retrieval. This Track 1 project plans to deploy an original instructional framework called
A-PAVR (Abstract, Plan, Attempt, Verify, Reflect) across General Chemistry I and Introductory
Chemistry at Salt Lake Community College, including sections taught through Concurrent
Enrollment at partner high schools. The project also plans to build sustainable institutional
capacity by equipping faculty with the pedagogy and open educational resources needed to teach
responsible AI use at scale.

The goals of this project center on reducing drop-fail-withdraw rates in General Chemistry I,
strengthening students' self-regulated learning skills, and producing nationally replicable
evidence on how structured AI use affects learning in two-year college science pathways. The
scope spans General Chemistry I and Introductory Chemistry, including Concurrent Enrollment
sections, reaching approximately 700 students per semester across roughly 30 sections. The A-
PAVR framework structures each study cycle into AI-assisted phases (Abstract and Verify) and
strictly analog phases (Plan and Attempt), preserving the cognitive load of problem-solving
while using AI feedback to support metacognitive reflection. The project plans to measure
outcomes through learning analytics, student surveys, and longitudinal course progression data
across the three-year project period. A parallel faculty development strand plans to train
instructors through Faculty Learning Communities and an asynchronous eLearning course,
certifying them in outcomes-aligned AI pedagogy and producing an open educational resource
(the STEM AI Literacy Handbook) available for adoption by other institutions. The project plans
to disseminate findings through the Journal of Chemical Education, Canvas Commons, and the
REAL CHEM Community of Practice. The NSF IUSE: Innovation in Two-Year College STEM
Education (ITYC) Program seeks to accelerate and advance knowledge about the impact of
emerging and evidence-based practices in undergraduate STEM education at two-year colleges.